Acquisition of a Fourier Transform Nuclear Magnetic Resonance Spectrometer

This project will produce a significant improvement in chemistry education at Rollins College by providing state-of-the-art instructional laboratory NMR capability. Students will be introduced to NMR spectroscopy by examining simpler carbon-13 FT-NMR spectra before discussing proton NMR. Acquisition of a 90-MHz Fourier transform NMR will allow students in Organic Chemistry, Physical Chemistry, Instrumental Analysis, Inorganic Chemistry, Biochemistry, and Undergraduate Research to determine carbon-13 and proton NMR spectra with high resolution, to perform experiments involving spin decoupling or effects of temperature, and to gain experience with computer- controlled instrument operation and data acquisition. The FT-NMR will make important contributions to the chemistry laboratory program, complementing curriculum development in the Chemistry Department.